Inverse Problems in Industrial Applications

Inverse problem is interdisciplinary research field that is at the heart
of many scientific inquiry and engineering development. In inverse
problems, one is interested in determining quantitative information about
a system from measured data. This proposal focuses on a set of inverse
problems that arise in industrial applications. These problems not only
offer mathematicians with opportunities to make an impact in important
technological development, but also research directions that are certain
to enrich mathematical sciences.

Four research areas to be investigated are (i) determination of core
profile of an fiber optic cable, (ii) nondestructive evaluation of
spot-welds, (iii) bar code imaging and interpretation, (iv) imaging the
electrical activity of the heart. The proposed work involves modeling and
analysis of the problem. We will also develop effective computational
strategies that exploits a priori information about the unknown and
incorporates them in the solution strategy. Because this research program
is of interest to several of the companies with which the PI has
collaborated, it is anticipated that some technology transfer will occur.